Acquisition of GC/MS and FT-IR Instrumentation to assist with the Integration of Research-Based Learning throughout Boise State University's Chemistry Curriculum

Chemistry (12). This project is improving students' understanding of the process of chemical inquiry by incorporating research and Problem Based Learning (PBL) experiences that utilize Gas Chromatograph/Mass Spectrometer (GC/MS) and Fourier Transform/Infrared Spectrometer (FT-IR) into courses from first through senior year and throughout the chemistry curriculum. It is also improving students' understanding of the interdependence of chemistry sub-disciplines by coordinating their laboratory experiences across diverse laboratory courses. Additionally, the project is building skill in the use of modern instrumentation. The broader impact lies in the large number of students, both majors and non majors that are experiencing this curriculum as well as its ability to serve as a model for promoting critical thinking, problem solving, and the use of modern instrumentation in the laboratory.